Japanese Language for the Technical Person

The Electronics Education Foundation of the American Electronics Association has established a unique program providing opportunities for U.S. engineering and computer science students to conduct research in major industrial research laboratories in Japan. The long-term goal of this AEA Japan Research Fellowhip Program is to increase the pool of American engineers familiar with Japan. This award will allow two groups of students (20-25 fellows) to participate in nine-week intensive Japanese language training during the summer prior to their departure for Japan. Past experience suggests that language competency determines, to a large extent, the depth of technical and cultural interaction possible and the degree to which the visiting researcher is integrated into the Japanese host laboratory. The support, to be jointly funded with AEA, will be used to develop and deliver a course of Japanese language study tailored to the technical student with an immediate need for survival-level Japanese language skills and as a basis for continued formal training in Japan.